Making Connections: SOUNDPRINT Explores Science and Technology

9453001 Rankin SOUNDPRINT is requesting $901,273 over 16 months to produce a series of radio documentaries entitled Making Connections: SOUNDPRINT Explores Science and Technology, related educational outreach materials, multimedia non-broadcast applications, and an aggressive distribution plan. Sixteen half-hour original science documentaries, distributed through national Public radio will address three broad areas of science and technology. These include: the limitations and possibilities of scientific achievement; the requirements of sustainability (surviving); and the explanation science offers for human behavior. An additional 21 programs will be repackaged as special broadcasts to be distributed to over 200 public radio stations. Target audiences include middle school and secondary school students, and adults.